Developing Strong and Diverse STEM Teachers

This Noyce track 1 project aims to serve the national need of preparing science and mathematics teachers to address the nation’s STEM teacher shortage developing highly effective science and mathematics teacher leaders. The project will support a total of 30 scholars with backgrounds in physics, mathematics, or other STEM disciplines by proving a one-year full tuition stipend, a summer teaching experience, a full year teaching internship and community-based professional development activities. The proposed project components will enable high-achieving prospective teachers to become STEM teacher leaders able to design and teach lessons using place-based, problem-based and engineering design instruction for all students.

This project at the University of Cincinnati includes partnerships with Breakthrough Cincinnati and the Winton Woods School District. The three project goals are 1) preparing 30 new STEM teachers over 5 years; including at least 15 with degrees in physics or mathematics leading to teaching licenses in physics and/or mathematics; and up to 20 in other secondary STEM licensure areas; 2) preparing all the scholars to use place- and project- based instruction in STEM classrooms; and 3) creating an student centered teacher preparation environment. The project will support both undergraduates and STEM post-baccalaureate scholars. The project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: A. Is the program successful in recruiting, preparing and retaining physics and mathematics Scholars? B. Is the program able to create a student-centered learning environment for all scholars? C. Do Scholars demonstrate the ability to utilize place-based, problem-based and engineering design-based instruction? D. Do the Scholars make consistent use of the instructional strategies to support the learning of all STEM students? The results of which will be disseminated to help enhance the field. This Track 1 Scholarships and Stipends project is supported through the Robert Noyce Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.